A New Approach to the Dating of Glacial Moraines: Testing the Reliability of C-14 Dating Remains of the Aeolian Biome in Till Matrix

9314927 Dorn Pilot results from glacial moraines in the southwestern United States demonstrate that it is possible to obtain 14C ages from conventional radiocarbon measurements on disseminated organic extracted from the matrix of moraines. Two moraines that were previously mapped as 'late Wisconsin', based on moraine morphology, morphostratigraphic positioin, soils and weathering characteristics, yielded conventional radiocarbon ages that fall within 'state 2' of the marine oxygen isotope chronology. One mapped as 'early Wisconsin' yielded an infinite 14C ages could expand rapidly. this is potentially dangerous, because there are a number of confounding factors that could produce misleading ages. The objective of this proposal is to assess if this method is subject to confounding factors, by sampling tills at sites with independent age control.